Ultra Low Friction Materials

Under an SGER award a search will be made for ultra-low friction materials. The work is based on the premise that very smooth and very hard surfaces of materials which do not deform by dislocation movement, by cracking, or by large elastic deformation hysteresis due to molecular movement could have extremely low friction. To test this hypothesis a number of highly cross-linked, covalently bonded elastomers will be sought out and their frictional properties related to their bond structure.